Acquisition of an Environmental Scanning Electron Microscope(ESEM)

9413464 Viney This instrument is to be used on research projects that include: (a) real-time studies of the assembly of materials, structures and molecular machinery at sub-cellular scales; (b) the hierarchial assembly of fibrous, tubular and network protein structures outside cells; (c) studies of inorganic crystal nucleation on engineered protein templates leading to the improved design of novel polymer/ceramic composites; (d) the deformation and fracture properties of biological materials; (e) rational design of biomaterials (e.g., implants, contract lenses) based on their observed structure and interaction with biological media; (f) the effect of gaseous environment on high temperature sintering reactions in ceramics; and (g) cermets: the effect of environment and ceramic surface characteristics on wettability by liquid metals. An interdisciplinary group of researchers at the University of Washington is to utilize this instrument. ***